Southeastern Analysis Meeting (SEAM 35)

This award supports participation in the conference "Southeastern Analysis Meeting (SEAM 35)" held March 15-17, 2019 at the University of Alabama in Tuscaloosa, Alabama. The conference focuses on recent developments in analysis, especially in the fields of harmonic analysis, complex analysis, and operator theory. One topic discussed will be the relation between operator theoretic inequalities and isoperimetric type inequalities. Other speakers will discuss rational functions on the bidisc, a topic with connections to function theory, control engineering, and electrical engineering. Another subject will be inner functions and zero sets for spaces of analytic functions. A further topic is Leibniz type rules and bilinear estimates and their applications in analysis and partial differential equations. In all, there will be six plenary talks; other participants have the opportunity to present twenty-minute contributed talks.

Several distinguished mathematicians have agreed to attend and speak at this conference. This award gives early career researchers, members of underrepresented groups, and researchers without other sources of grant support an opportunity to attend and participate in this conference and to interact with other researchers. The organizing committee will make this funding opportunity known through a number of different activities. More information is available at the conference web page: https://math.ua.edu/conferences/seam-35/.